The Role of Fast Atmospheric Teleconnections in Extended Global Weather Predicition

This is a study to investigate the transmission of errors by the teleconnection processes in the atmosphere. The project consists of three parts, (a) to use the DERF dataset for testing the hypothesis that the location of maximum response to tropical forcing is "phase locked", (b) to examine the response of a simplified NMC GCM to a variety of tropical forcing scenarios, and (c) to investigate the response of the NMC operational GCM to tropical forcing. This project is important because it will help to clarify a potentially significant source of uncertainty in the present meteorological operational data analyses. In addition the study will benefit the ongoing efforts for designing more effective observational platforms and networks.